Effect of Physical Chemical Factors on the Rate of Nonenzymatic Browning

The objective of this research is to determine the effect of various physical and chemical factors, such as temperature, water activity and oxidation reduction potential, on the rates of nonenzymatic browning in complex chemical systems. Nonenzymatic browning results in loss of protein nutritional quality in foods and parentenal drugs, off flavor development in foods, production of mutaqgens, and carcinogens, and has been implicated in cataract formation in the eyes of diabetics. Presently the only nonenzymatic browning inhibitor is sodium sulfite whose use is limited because of toxicity. This research might lead to understanding of factors governing nonenzymatic browning and therefore lead to methods able to control it without the use of sodium sulfite.